6th Northern Research Basins Symposium/Workshop February 1986

Support will be provided to the International Symposium/Workshop on Northern Basin Hydrology, entitled 'Field Measurements under Winter Conditions,' which will be held in February 1986 at the Michigan Technological University. Approximately half of the sessions will deal with winter discharge measurements, while the remainder will cover snow, soil and related hydrometeorological parameters. The symposium will bring together scientists from across the world.